Functional Analysis of Sparse Longitudinal Data

Project Abstract
proposal: 0406430
PI: Jane-Ling Wang

Functional Regression Analysis of Sparse Longitudinal Data

Recent advances in modern technology have facilitated the collection of
repeated measurements over a period of time on the same subject. Such data
are common in nearly all fields including the biological, medical, neural,
physical and social sciences, but are termed differently, with
"longitudinal data" being the preferred term in health and social sciences
and "functional data" being the preferred term in engineering and physical
sciences. Statistical approaches to analyze such data are also
intrinsically different in the longitudinal and functional data research
communities. Parametric approaches such as GEE and GLMM are
predominantly used methods to analyze longitudinal data, while
nonparametric approaches play the analogous role for functional
data. Due to the limitations of each approach, semiparametric models
combining longitudinal and functional data analysis methods emerge as a
promising alternative, which can bring out and combine the best aspects of
the two approaches. Longitudinal or functional data are intrinsically
complex owing to irregularity of observational times, dependence of
observations within subjects, sparsity and size of the data. They pose
challenges both on the computational and theoretical fronts. This
proposal aims at bringing together methodology from various areas in
statistics, including nonparametric smoothing, multivariate statistics,
random and mixed effects models, dimension reduction and robustness, to
address several challenging issues and to provide flexible modeling and
efficient implementation for longitudinal/functional data. The proposed
methods range from extension of traditional linear models to new
semiparametric and nonparametric models, and focus particularly on
handling sparse longitudinal data with or without measurement error. A
new version of functional principal components (PCA) analysis was
developed recently by the PI and collaborators, where the functional
principal component scores are framed as conditional expectations. This
extends the applicability of functional PCA to typical situations in
longitudinal data analysis, where only few repeated measurements are
available per subject. This approach is known as Principal Components
Analysis through Conditional Expectation (PACE) for longitudinal data.
With PACE serving as the backbone, the proposal includes three projects:
(1) Modeling covariate effects, (2) Semi-parametric dimension reduction
approaches, and (3) Robust covariance estimation and functional PCA.

In addition to new methodology, statistical theory will be a major focus
to establish formal inference procedures. So far, theoretical results
for functional data are scattered and this proposal aims to fill the gaps.
The proposed research is motivated by ongoing interdisciplinary research
collaborations of the PI with biologists and physicians. The new
approaches are applied to data generated from these ongoing and future
collaborations. The proposed research helps to better understand the
relationship between reproductive activity and longevity and will
contribute to the growing fields of aging research and biodemography. As
the procedures developed will be applicable to general longitudinal or
functional data from other disciplines, they will provide much needed
modern statistical tools to analyze such data, which in turn will
facilitate the advancement of many scientific fields. Moreover, with the
fast rising trend towards the collection of such large and complex data
sets, there is a shortage of Ph.D. statisticians trained to handle such
data. The research assistantship provides a training
opportunity to address this need. The PI is engaged in
undergraduate research training, and continues this activity in
addition to the dissemination of the new research findings through
teaching, training, and the web.